Texas Tech University Connectivity to the vBNS

The proposal from Texas Tech seeks partial support of a DS-3 connection to the gigaPoP at Texas A&M University's (TAMU) Houston Institute of Biosciences and Technology (IBT). Applications proposed include IP multicasting, both point-to-point and multicast, to be used in facilitating collaboration, seminars and presentation of course materials focused on areas such as biocybernetics and bioinformatics. Other applications include simulations of human movement systems with specific application to solving problems of vision and human gait; retrieval of real-time and archived data sets used in developing innovative multimedia applications for accessing and analyzing meteorological data and precision agriculture. Support of system-level experiments on the active and passive components for Dense Wavelength Division Multiplexing (WDM) is another intended use of the vBNS. Collaborating institutions include but are not limited to: the University of Chicago, Washington University at St. Louis, Johns Hopkins University, University of Notre Dame, University of Washington, Texas A&M, University of California-Davis, DARPA, the Ballistic Missile Defense Organization, and the National Library of Medicine.